Tropical and Extratropical Cyclogenesis

Although the topic has been a principal focus of meteorological studies for decades, cyclogenesis, both in the tropics and extratropics, is far from being well understood. Further, the exact conditions that determine whether cyclones become intense storms or, in the tropics, hurricanes are not known. Under this award, the principal investigator, Dr. Emanuel, will investigate cyclogenesis from a number of aspects, employing both observational and theoretical methods. His participation in the field phase of ERICA (Experiment on Rapidly Intensifying Cyclones in the Atlantic) will allow him to test his hypothesis that extratropical storm intensification is due to wind-dependent flux of sensible and/or latent heat from the ocean surface. He also will explore the dynamics of continental cyclones by analyzing the roles of potential vorticity and surface temperature. On the topic of tropical cyclogenesis, Dr. Emanuel will continue his research to identify a threshold which governs hurricane intensification as well as develop a new diagnostic model based on angular momentum coordinates for simulating hurricanes. This research is very likely to substantially advance our understanding of cyclones and, ultimately, to improve their prediction. Dr. Emanuel is one of the best young scientists in the field and well known for his innovative approaches to research.